Workshop: Curation of Terrestrial Scientific Cores, Samples and Collections

Abstract

Acquisition of terrestrial cores, samples and other rock material is critical for
conducting many avenues of geologic research. Most academic researchers have access to
space where cores and samples can be stored during the initial stages of research and
sampling but lack an adequate facility where these materials can be permanently preserved
and accessed by the greater research community. A one-day workshop will bring together
geoscientists working with terrestrial cores, samples, collections, and other geologic
materials that have been acquired as part of academic research projects. The primary goal
of the workshop is to visit a public-sector, state-of-the-art sample repository where
space is currently available to the academic community and other researchers for long-term
storage, curation, and easy access to rock material and other collections. Through the
workshop, participants will identify the needs of the research community and prioritize
the facilities, equipment, and metadata storage that would best suit the different types
of geologic material to be curated. By establishing a list of priority needs and major
issues facing academic researchers, an effective plan for meeting those needs can be
formulated.